Neural Mechanisms for Anoxic Survival in the Turtle Brain

Most vertebrate brains suffer irreversible damage when deprived of oxygen for more than a few minutes. As a result little is known of brain anaerobic and hypoxic processes. Some reptilian brains are unique in their ability to survive under totally anaerobic conditions for many hours. Previous studies in Dr. Lutz's laboratory have shown that the anaerobic brain greatly reduces its energy expenditure to match a corresponding reduction in energy availability. The mechanisms by which this down regulation in brain energy requirements are achieved is of considerable interest and will be investigated in the present study. Dr. Lutz's hypothesis is that adenosine release plays a key role in mediating the crucial transition between the normal aerobic state and the metabolically depressed anoxic state. These studies are proposed to test this hypothesis which will include investigating the physiological/electrophysiological effects of the pharmacological manipulation of adenosine receptors. The knowledge gained will provide insights not only into an extraordinary neuronal adaptation to but also into the processes underlying the harmful changes that occur during oxygen lack in vertebrate brain in general, including that of the mammal, particularly those associated with anoxic damage.***//